Science Education Community Leadership Project

9453807 Schatz The Pacific Science Center is requesting $800,000 over three and one-half years to develop a national model which would enable community agencies to incorporate science education into their programs. Through thirteen-week training programs, and developing Community Center Workshops, individuals from community organizations will acquire the skills necessary to become advocates and providers for science enrichment. A number of community-based organizations which serve primarily minority clients have agreed to collaborate with the Museum.